2012 Shipboard Scientific Support Equipment

ABSTRACT

21 May 2012
Proposal Number: 1230974
Institution: Oregon State University
PI: D. Bailey

This proposal requests three Shipboard Scientific Support Equipment (SSSE) items for Oregon State University’s R/V OCEANUS; namely Asset Management Software, Electronic Charting System (ECS) enhancements, and a new cable lubricating system. These items will improve navigational safety, enhance utility to science, and improve the overall maintenance and operational efficiency of the vessel.

Broader Impacts: The R/V OCEANUS supports federally-funded scientific research in the Pacific in order to expand human knowledge of the ocean environment. During operations, the vessel routinely exposes graduate and undergraduate students to seagoing oceanography. Pubic outreach is also achieved through real-time satellite connectivity from ship to shore, and open house events. The OCEANUS is scheduled to complete one hundred and thirty four (134) NSF sponsored days in 2012.